Scientific Leadership Scholars Program (SLSP)

Humboldt State University's Scientific Leadership Scholarship Program is awarding scholarships to students pursuing Computing Science, Environmental Resources Engineering, and Mathematics degrees who demonstrate both academic potential and financial need. Special emphasis is being given to recruiting Native Americans and first generation students. Scholars are being organized into cohorts, which are being supported by an enhanced academic program which includes common courses, individualized advisement, structured tutorials, mentoring, and a summer orientation. Scholars are also being offered the option of participating in an interdisciplinary service learning seminar using collaborative problem solving with local Native American communities.